Understanding Decision-Making in Construction Engineering

Abstract

CMS 0085484
PI: Eddy M. Rojas
Institution: SUNY Buffalo
"Understanding Decision-Making in Construction Engineering"

This award is for the support of an exploratory research project focused on
the decision-making process of current and future construction engineers
through pilot development and implementation of a virtual environment
called the "Construction Simulator." This environment is created using a
Web-centric modular architecture and provides a platform on which different
"Scenario Developers" interact and collaborate with the environment. As
each participant advances through the scenario, responses are captured and
used by a simulation engine to create outcomes. The stored responses
constitute an automatic recording of detained performance data, which is
available for replay and analysis.

The research includes definition of the environment's framework, the
development of a simplified version of the Construction Simulator mark-up
Language (CSML), and the design and construction of simplified simulation
and visualization engines. This award is made under the SGER (Small Grants
for Exploratory Research) program. This preliminary study will determine
if the "Construction Simulator" has the potential to provide knowledge
about the decision making process of participants. It will also determine
if the "Construction Simulator" has the potential to improve the process.
Development of the "Simulator" will involve participation